CAREER: Understanding Ultrasonic Vibration-Enhanced Anti-Gravity Electrohydrodynamic Printing for High-Precision Functional Structures

This Faculty Early Career Development Program (CAREER) award supports fundamental research to establish an innovative multiphysics-assisted 3D printing technology for high-precision, stable fabrication of functional microstructures both on Earth and in space. As space exploration expands, there is an increasing need for reliable in-space manufacturing technologies capable of producing high-performance microstructures under reduced or altered gravity conditions. However, achieving high-precision, stable, and continuous 3D printing across a broad range of ink properties, particularly for high-viscosity, high-volatility inks dispensed through fine nozzles, remains a major challenge both on Earth and in space. This project aims to investigate a novel ultrasonic vibration-enhanced electrohydrodynamic printing technology uniquely configured for anti-gravity operation, thereby advancing the fundamental science of multiphysics-assisted micro-additive manufacturing. The outcomes will establish both the scientific and technological foundations for future in-space manufacturing and advanced functional microstructure fabrication across a wide range of applications, such as energy harvesters, etc. This project will also integrate research and education by developing an immersive mixed reality learning platform that visualizes complex printing processes in virtual space station environments, making additive manufacturing concepts freely accessible to K–12 and the general public, thereby promoting STEM interest, creativity, and workforce development. Outreach efforts will engage K–12 students through summer camps and pre-college programs, while also supporting Missouri’s Industry 4.0 workforce initiative to train the next generation of STEM professionals.

The research aims to establish a comprehensive theoretical, computational, and experimental framework to understand vibration-enhanced electrohydrodynamic printing under anti-gravity conditions. The anti-gravity setup not only helps validate the potential for in-space manufacturing but also enables precise “isolation and amplification” of physical field effects on printing dynamics, providing a unique platform to understand and validate the fundamental mechanisms of the printing technology. In this project, both analytical and computational models will be developed to investigate the fundamental printing dynamics governing stable cone–jet formation under the influence of multiple coupled physical fields. Systematic experiments will then be designed and conducted to validate and improve the models using both in-situ and ex-situ characterization and analysis techniques, thereby deepening the understanding of the multiphysics-coupled cone–jet dynamics. To elucidate the relationship between process parameters and the resulting structural and functional performance, high-viscosity, high-volatile piezoelectric inks will be printed to demonstrate enhanced printing stability, resolution, and functional performance. The outcome of this CAREER project will unravel the fundamental mechanisms of this multiphysics-assisted printing and develop working diagrams to optimize processing parameters for high-precision, high-performance fabrication of functional materials both on Earth and in space.